Stability of Non-Autonomous and Random Linear Systems

9972132
Nerurkar

The proposed research project deals with the study of stability and spectral
behavior of a family of linear differential equations with time-dependent
or random coefficients. Typically the underlying coefficients are
`recurrent' (in particular quasi-periodic) functions of time. This includes
examples of forced oscillations and (finite as well as infinite dimensional)
quantum oscillators with external (time dependent) quasi-periodic and
ergodic forcing fields. Many such examples have been numerically and
theoretically investigated recently. Motivated by these examples, the
project is geared towards finding precise analytical results. The standard
method of proving stability results is via well established techniques like
the KAM technique or the use of `hyperbolicity'. On the contrary, in this
project we shall mainly focus on the unstable behavior. We analyze the
stability properties of the linear system via the dynamical properties of
suitable `skew-product flows' associated with it. For example, instability
of forced oscillations is captured in terms of the absence of point spectrum
of the associated quasi-energy operator and this in turn is reflected in the
ergodic behavior of certain skew-product flows generated by the given
linear system. Consequently our technique is a blend of methods of
topological dynamics, ergodic theory, and ideas from control theory.
Viewing the desired perturbations as `controls with certain constraints'
allow us to apply methods of control theory to create chaotic behavior.
With this viewpoint and with the techniques developed thus far, the
project plans to examine questions of genericity and prevalence of chaotic
or unstable behavior, absence of zero Lyapunov exponents, ergodicity and
proximality for specific families of equations arising in physics and
engineering. Finally the non-linear implications of the theory developed
will be examined by developing results about time-dependent (or non-
stationary) linearization and normal forms.

This project investigates long term time evolution, particularly the
unstable and chaotic behavior of certain classes of dynamical systems.
Motivated by the recent theoretical and numerical study of forced quantum
oscillators with random or quasi-periodic forcing, this project plans to
provide the underlying analytical reasons and precisely predict the long
term behavior of such systems. The systems we consider model several
mechanisms of practical and theoretical interest such as (a) behavior of
electrons and other `spin 1/2 particles' subjected to external random
magnetic fields, (b) phonon conduction and polarization of light in optical
fibers, and (c) propagation through random media such as (quasi)-crystals
with irregularly distributed impurities. Typically most of the existing body
of knowledge is about two extreme cases, namely either when the external
forcing field has no randomness (e.g. is periodic) or is as random as can be
(technically this means the process is stochastically independent). Using
the analytical tools of ergodic theory, topological dynamics and control
theory, the project will investigate finer details relating the chaotic nature
of evolution of the system to the precise data about the nature of
`correlation function' and `rate of mixing' of these random forcing
processes. The project will attempt to find and identify the underlying
features of these systems that determine various types of unstable behavior
and obtain quantitative information about quantities such as the Lyapunov
exponents which are indicators of the degree of chaos. Some by-products
of our investigations will have important implications to engineering
disciplines such as filtering theory and to systems and control engineering.